Astronomy in Chile Educator Ambassadors Program (ACEAP)

This award will support a new Astronomy in Chile Educator Ambassadors Program (ACEAP), with the goal of increasing awareness of U.S. observatory facilities in Chile among the general public. The project will recruit Ambassadors from community college personnel, amateur astronomers, and planetaria, and provide them with training in science communication and public outreach. The Ambassadors will subsequently have hands-on, in-depth experiences at three major U.S. observatories: the Atacama Large Millimeter/submillimeter Array (ALMA), the Gemini Observatory, and the Cerro Tololo Inter-American Observatory (CTIO). Finally, the Ambassadors will disseminate their newfound knowledge to the public, providing a pathway to connect the American public to U.S. scientific investments overseas.